Seismic Structure and Tectonics of Oceanic Lithosphere and Upper Mantle

This research is to do seismological studies of the thermal regime and dynamics of mid-ocean ridges and oceanic lithosphere and asthenosphere. The state of stress will be investigated by means of source mechanisms of earthquakes. Lateral heterogeneity of oceanic structure will be determined from studies of S, SS, and P-wave travel times. The objectives are to understand the relation of earthquake seismicity and source characteristics to the thermal and mechanical structure of oceanic lithosphere, to determine the 3-D seismic structure of the lithosphere and asthenosphere beneath the oceans, and to relate both types of observations to specific models for the processes of seafloor spreading and mantle convection.